The Production of Mature T Lymphocytes

The goals of this research are to understand the intrathymic events leading to the production of mature T lymphocytes in the developing and adult stages of life. It is proposed to analyze extensively the maturation of CD4-8- precursors from the murine adult and fetal thymus. These studies will be carried out in vivo utilizing the technique of intrathymic injection to create chimeric mice. The possibility that phenotypic subsets of adult and 14 day fetal CD4-8- thymocytes produce different types of progeny will be tested. For this purpose, differentiation antigens on peripheral progeny produced by adult and fetal CD4-8- subsets will be examined. To study the differentiation of subsets independent of phenotype, thymic progeny produced by individual CD4-8- precursors in clonal repopulations will be analyzed. Moreover, to understand the dynamics of the intrathymic precursor pool during development, the phenotypes of peripheral T cells arising from CD4-8- thymocytes of different gestational ages (fetal days 14-19) will be analyzed. A better understanding of the differentiation of T lymphocytes in the fetal vs adult stages of life will provide a major contribution to our knowledge of the development of the immune system. Dr. Adkins' proposed new appoach should provide a unique perspective on this important problem.